Acquisition of a High Speed Digital Camera for Advanced Materials, Processing and Dynamic Events Research

0320968

Abstract
There has been a considerable effort in research at Oklahoma State
University (OSU) in recent years in the fields of polymer fatigue, mechanics in the
manufacturing of continuous thin materials, called webs, high-speed machining of
difficult-to-machine materials, finishing of advanced ceramics, and fluid-structure
interactions. It has relied on extensive experimental investigations utilizing advanced
instrumentation. Technologies developed from these researches have been transferred
to industry and have directly benefited sponsoring and other companies, such as
Eastman Kodak, 3M, Imation, Procter & Gamble, ALCOA, Rockwell Automation,
Medtronic, and DuPont; and research findings have been published in leading archival
journals and conferences. To continue research in these fields for the discovery in
science and engineering and for the development of new technologies transferable to
industry, a high-speed digital camera system is needed to investigate the high-speed
mechanics accompanied with the research in these areas. The projects outlined in this
proposal require the ability to observe in situ high-speed phenomena occurring in these
fields. Experiments using the camera will be conducted to investigate the dynamic crack
initiation and propagation at high-speeds in both virgin and fatigue-damaged structural
polymers for the purpose of identifying the onset and the mode of failure; to study high-speed
mechanical slitting processes of plastic and metallic webs; to study the
mechanisms of high-speed machining processes of advanced materials; to study the
mechanisms of material removal in magnetic-field-assisted ceramic polishing processes;
to study the interaction of thin films (solid) and turbulent air (fluid) in web manufacturing
processes; to examine blade structural response and aerodynamic damping in
turbomachine compressors; and to study the high-speed winding of webs.
The availability of high-speed digital camera will greatly enhance the
research infrastructure at OSU, as well as develop research infrastructure in Oklahoma,
an EPSCoR state, to enhance research competitiveness of the state; it will also help
support productive research that will continuously benefit the U.S. industry, especially
the web material industry through the Web Handling Research Center, the only center
on web handling in the world, that is sponsored by 17 U.S. companies.